A Three-Year Longitudinal Study of Children's Development of Mathematical Knowledge

The research study will describe in fine detail the mathematical behavior of individual children drawn from classrooms where mathematics is taught through problem- solving activities Questions to be addressed include how each child develops meaning for mathematical ideas and procedures and makes connections within and among representations; the obstacles to understanding that are created; and how mathematical behaviors develop over time. The research includes the analysis of videotapes of small group problem-solving activities within actual classroom settings, and individual task-based interviews in grades three through six. The study will be conducted in three school districts in New Jersey: urban, blue-collar working-class, and upper middle-class suburban. The videotapes and accompanying analyses will be developed in trial usuage for pre- and in-service teacher education programs at Rutgers and subsequently refined for more wide-spread dissemination. The results of this study have important implications for teacher preparation and development and instruction in a variety of school settings. This project is jointly supported by the Division of Teacher Preparation and Enhancement and the Division of Materials Development, Research and Informal Science Education.